Equipment: MRI: Track #1 Acquisition of Fluorescence Assisted Cell Sorter at Keck Graduate Institute (KGI)

This award will support the acquisition of a Florescence-Activated Cell Sorter (FACS) at the Keck Graduate Institute. The FACS is a device that shines lasers on cells and sorts them by color, which enables researchers to isolate and characterize cells with high precision. The FACS will support advanced biotechnology research in life sciences, biomedicine, and biomanufacturing. In addition, the FACS will provide students and trainees with hands-on training in biomanufacturing and biomedical engineering. Partner institutions in Southern California will have access to the system to enhance scientific collaboration and workforce development across the region.

This Major Research Instrumentation project will: (1) address fundamental and translational questions in cell biology, biomedical engineering, and biotechnology; (2) strengthen collaborative research between KGI and neighboring institutions; and (3) prepare students for careers in research and manufacturing. The acquisition will support training for investigators at different career stages and strengthen partnerships. KGI will also provide access to biotechnology startup companies for the development of cell-based therapies. The award will foster vibrant research, strengthen education, and help prepare California’s biotechnology workforce.